Mid-Atlantic Regional Calculus Consortium

MARCC--a consortium of five Black universities, a two-year community college, and two inner city Black high schools--is proposing to implement the Harvard Core Calculus Course.year period. MARCC, consisting of Benjamin Banneker High School, Cheney State University, University of the District of Columbia, Hampton University, Howard University, Lincoln University, Montgomery Community College, and Spingarn High School, enrolls over 2,000 minority students in their Calculus I and II courses. With this planning grant, workshops are being held for faculty in the represented institutions and implementation plans are being formulated for the consortium.